Mathematical Sciences: Vector Bundles and Integrable Systems

9404087 Previato The research covers aspects of Hamiltonian and integrable systems as related to the geometry of algebraic curves and the theory of moduli spaces of vector bundles. Several aspects of the theory of theta functions will be considered in their relationship with certain classes of differential equations. The research has potential applications to other branches of mathematics, mathematical physics, in particular the theory of solitons. ***